Support for ACS Symposium 'Polyelectrolyte Multilayers'; The American Chemical Society National Meeting; San Francisco, CA; March 2000

0071493
Schlenoff

Funding is provided to defray the travel costs of junior faculty, postdoctoral associates and graduate students attending an ACS Symposium on Polyelectrolyte Multilayers, hosted by the Division of Colloid and Surface Science, at the American Chemical Society National Meeting in San Francisco, CA, March 2000. NSF/DMR is currently supporting this field with a number of active grants.